An Integrated Curriculum for Intelligent, Microprocessor-Based Mechanical Systems

A significant change in the Mechanical Engineering Curriculum at the University of
Notre Dame is proposed in response to the changes that have developed as a result of the pervasive use of microprocessors in complex, modern mechanical engineering systems. Plans are for the Mechanical Engineering Curriculum at Notre Dame to provide a unique experience with microprocessors and microprocessor-based mechanical systems to its students to better prepare them for the continued proliferation of intelligent mechanical systems in the industrial sector. The program also outlines the introduction of exercises at the sophomore and junior levels. Students will learn to program microprocessor devices and to employ them in a useful fashion to actuate, sense, control or optimize systems and processes in the context of laboratory experiments in solid mechanics, fluid mechanics, controls and dynamics. Support is provided for faculty to collaborate with industry while developing microprocessor based learning experiences for students. The experience from this project at Notre Dame will be a valuable guide for other institutions.